International Group Travel to Protistological Meeting in England, July 1987

Protistans are a varied group of micro-organisms that defy the simple classification of life into plants and animals. The International Society for Evolutionary Protistology will meet in England during July, 1987, and a variety of important problems regarding evolution and classification of the Protista will be discussed. Dr. John Corliss requests a modest sum that will allow a contingent of four American protistologists to attend the meeting. These four investigators cover the spectrum of protistan diversity and the range of approaches to their systematics. Each member of the delegation will either be presenting a research paper or chairing a symposium session. In addition, the delegation has been allotted time on the program for a planning session, during which participants will draft a plan for several workshops, to be held in conjunction with international protistological conventions over the coming five years. These workshops will address the problem of protistan evolution and classification using the full range of modern techniques.